ITR/IM:3D Shape-Based Retrieval and Its Applications

This research will investigate methods for automatic retrieval and analysis
of 3D models. It will develop computational representations of 3D shape
for which indices can be built, similarity queries can be answered
efficiently, and interesting features can be computed robustly. Next, it will
build user interfaces which permit untrained users to specify shape-based
queries. This will include queries specified with text, 3D models, 2D
sketching, and high-level methods based on constraints and rules. It will
combine elements of computer graphics, computer vision, and computational
geometry.

Applications of shape-based query methods will include Internet search engines,
computer-aided design, molecular biology, medicine, and security. In each
application the researchers will work with domain experts to understand the
critical elements of the 3D databases and the challenging shape queries for
which new methods are required. For example, working with molecular biologists
will help develop query tools for the Protein Data Bank to find macromolecules
matching a given shape. These methods will aid classification of proteins for
which only low-resolution electron density maps are available, and aid searches
for proteins matching a specific binding site.